Workshop: World Alliance on Turbulence and Wind Energy, Gurabo, Puerto Rico, February 2011

1064152
Castillo

Intellectual Merit

This award will provide partial support for the workshop titled “The World Alliance on Turbulence and Wind Energy”, to be held at the Universidad del Turabo in Puerto Rico during February of 2011.

The stated objectives of the workshop are to 1) Promote international collaborations between the United States, Europe and Australia; 2) Indentify major pressing questions on turbulence and wind energy; 3) Promote technology transfer by means of collaborations with industry and via creation of an Incubator in Puerto Rico on Renewable Energy; 4) Demonstrate the connection between fundamental knowledge with applications in wind energy; 5) Promote graduate studies for underrepresented students in the area of wind energy and turbulence; and 6) Establish the “First World Wall-Turbulence Meeting” with the purpose of building an international collaboration to address key questions in turbulence and wind energy.

The workshop will uniquely address the following scientific, engineering, and energy policy topics at intersection of atmospheric turbulence and wind energy: 1) Design and Optimization; 2) Grid Integration, Economics of Wind Energy, and Policy; 3) Offshore Wind Energy; 4) WE Arrays and their Effect on the Micro-climate; and 5) Atmospheric Boundary Layer and High Reynolds Number Flows.

Broader Impacts

The workshop has the potential to promote innovation for wind energy in an international context, and is designed to inspire graduate students, particularly from under-represented groups, to pursue interdisciplinary study in science and engineering topics at the nexus of atmospheric science and wind engineering. Towards this end, the workshop will aim to have more than 50% of student participants from under-represented groups.